FW-HTF: First Person View and Augmented Reality for Airborne Embodied Intelligent Cognitive Assistants

The Future of Work at the Human-Technology Frontier (FW-HTF) is one of 10 new Big Ideas for Future Investment announced by NSF. The FW-HTF cross-directorate program aims to respond to the challenges and opportunities of the changing landscape of jobs and work by supporting convergent research. This award fulfills part of that aim.

The future of work will involve human operators and semi-autonomous robotic systems. Human workers control the robots, extending their sensing and physical capabilities. This technology-empowered workforce will do remote, dangerous, and increasingly specialized work. An example use of this work might be the inspection of hard-to-access bridge supports. This project will explore the use of intelligent airborne drones to help ground-based operators in the inspection of highway bridges. Through the careful integration of augmented reality (AR) with first-person-view (FPV) operator interfaces this research will enhance worker performance across a wide range of otherwise very difficult tasks.

The research program will address key challenges in the use of embodied intelligent cognitive assistants (e-ICAs) for infrastructure inspection. New principles of shared situation awareness will be developed for human/robot collaboration through AR/FPV user interfaces and these principles will inform interface design guidelines and evaluation measures. The research program will also emphasize collaborative perception and planning, such as peripheral/central computer vision to enhance shared situation awareness, gaze-informed adaptive viewpoint planning for improved image quality, and a global planning method for partially known and uncertain maps that adapts the plan in real-time as the worker discovers new information. Tunable control system performance will allow the worker and the e-ICA to collaborate in managing disturbance energy to optimize mission data quality and flight endurance while ensuring safety of flight. The parallel development of a public repository containing annotated deterioration imagery will support artificial intelligence based defect analytics to provide the human worker with real-time inspection cues. A parallel and coordinated economic and workforce analysis will assess the impact of airborne e-ICAs, controlled using FPV with augmented reality, on the future of work in infrastructure inspection and beyond.